U.S.-China Cooperative Research on Modeling the Health Transition: An analysis of the Consequences of Socioeconomic and Demographic changes in China

This project is a collaborative, longitudinal study by a team of US and Chinese demographers and sociologists of the patterns and determinants of health of 3,745 families and 192 Chinese communities at the individual, household, and community level. Through data collected over a number of years, researchers will be able to develop a model that explains the relationship among social, economic and demographic changes, and health and nutritional outcomes. Data and models developed during this project can be used to compare China with other low-income nations, and to clarify some of the relationships between policy decisions and health, both of children and of adults. This project will be conducted jointly by researchers at the University of North Carolina and the Chinese Academy of Preventive Medicine.